III: Medium: Collaborative Research: Scalable Kinship Inference in Wild Populations Across Years and Generations

Scalable kinship inference in wild populations across years and generations

A cornerstone of research in molecular ecology is the reconstruction of family groups (kinship analysis).
Understanding how individuals in free-living populations are related to each other provides the best
opportunity to study many important biological processes, ranging from sexual selection to patterns
of dispersal and recruitment. Recent advances in molecular DNA technologies and computational
methods have made these studies possible. However, many conceptual and computational challenges
remain and need to be addressed in order to advance these studies. To date, existing research work
on kinship analysis has primarily focused on computational methods that address a single relationship, such as parentage assignment or reconstruction of full sib groups. Inclusion of multiple objectives, such as half-sib reconstruction with minimum parentage assignment, or hierarchy over multiple generations, makes formulation of the underlying computational problem extremely challenging, and simple extensions of previous methods do not address in a practical, scalable, and robust manner the problem of kinship reconstruction for data sets that include multiple generations of species or involve multiple optimization functions.

The goal of the proposed research is to design robust, parsimonious, and versatile computational
approaches for inferring multi-generation kinship relationships in wild populations from multiallelic
markers. Parsimony assumption is fundamental to these approaches as it requires no prior knowledge,
assumptions about sampling methodology, or existence of models, which is the case for most free-living
populations. The diverse tasks of this project include formulating computational kinship inference
problems based on existing biological studies, analyzing computational complexity of and providing
solutions to the resulting combinatorial optimization problems, and designing robust, scalable and
efficient high performance implementations. The resulting computational methods will be evaluated
on datasets collected from existing biological studies and will be deployed to the biological community
through the Kinalyzer web-based service, currently actively used for sibship inference only.

The research proposed in this project will greatly impact diverse application areas including funda-
mental research in combinatorial optimization and data mining, and within biology, areas as diverse as
behavioral ecology, evolutionary genetics, conservation, forensics, and epidemiology. The multidisci-
plinary nature of the project and the research team will enhance curriculum design of related areas and
introduce new cross-disciplinary courses. This cohesive, multidisciplinary project will provide training
opportunities in biology, operation research, algorithms analysis, bioinformatics and high performance
computing, within a single application framework. The project will leverage the diverse scientific ex-
pertise and extensive mentoring experience of the team to foster a true interdisciplinary collaboration
and to provide a thriving environment for a new generation of interdisciplinary scientists.